ADVANCE Fellows Award:Implementing Inquiry Pedagogy in Elementary and Middle School Science Classrooms

In the current climate of nationwide education reform, a strong movement is afoot to place inquiry at the
center of science education. Nowhere is this more apparent than in the National Science Education
Standards (National Research Council, 1996), which recommend that students be ieengaged in inquiryld
that involves combining ioprocesses and scientific knowledge as they use scientific reasoning and critical
thinking to develop their understanding of scienceln (p. 105). Clearly, if teachers are to promote
meaningful learning as advocated by the Standards, some of their instructional practices will have to
change, and such changes must be supported by strong, research-based professional development
programs. The proposed study will document the ways in which specific professional development
opportunities influence science teachers beliefs and knowledge and, consequently, their instructional
practices.
Several factors influence teachers instructional decisions, including their beliefs about the nature of
science, their theories about teaching and learning, and their knowledge of scientific concepts. Through a
series of week-long summer institutes, teams of elementary and middle school science teachers will gain
understanding of the nature of scientific inquiry, the role of models in scientific inquiry, and various
strategies for creating robust inquiry opportunities in diverse classrooms. Ongoing monthly meetings
throughout the academic year will provide teacher teams with opportunities to discuss issues related to
implementing inquiry pedagogy, share materials, and seek assistance with particular concerns.
A variety of professional development interventions will be employed to help alter teachers beliefs and
develop their knowledge about scientific inquiry and conceptual models. These interventions include:
collaborative study of a theoretical framework describing scientific inquiry;
eflective writing;
ongoing collegial interactions; and
quality curricular materials.
The analytical method employed for the study will be that of the collective case study. One focus teacher
from each teacher team will be the subject of a case study. Collectively, the case studies will be
formulated to shed light on the processes that teachers undergo in their attempt to adopt inquiry pedagogy
and the types of professional development and support that have positive influences on these processes.
Qualitative data such as interview transcripts, field notes, and teacher journals will be examined using
QSR NUD*IST, a theory-building qualitative analysis tool.
It is undeniable that national and statewide reform initiatives, bolstered by renewed emphasis on
standardized testing, are putting pressure on teachers to adopt inquiry-based instructional techniques.
Unfortunately, utilizing inquiry-based curriculum materials and providing hands-on learning experiences
in classrooms are not enough to enable students to ioengage in the same activities and thinking
processes [italics added] as scientists who are seeking to expand human knowledge of the natural worldll
(NRC, 2000, p. 1). To accomplish this tall task, teachers will need support in developing greater
understanding about the nature of scientific inquiry and ways of implementing inquiry instruction into
their classrooms. The proposed study will make an important contribution to our knowledge of how
specific professional development opportunities enable teachers to adopt more inquiry-based practices.